Energy Balance in Atmospheric Tides

Atmospheric tides are maintained by a continual supply of energy from the sun and moon. This energy is acquired by absorption of solar radiation in the lower and middle atmosphere, and from solar radiation in the lower and middle atmosphere, and from gravitational tide forces, which act in the lower atmosphere. The energy thus supplied is used to overcome internal dissipation. The energy balance must also account for the exchange of energy between the atmosphere and the underlying ocean and solid earth. The aim of this research is to make a quantitative assessment of the sources and sinks of atmospheric tidal energy. The lunar semidiurnal tide is the simplest case, because it is excited only by gravitational forces. This makes it possible to infer the dissipation from the observed distribution of tidal pressure at the earth's surface. The solar diurnal tide, although purely thermal in origin, is a more difficult case because the dissipation can be estimated only by numerical modeling. The largest atmospheric tide--the solar semidiurnal-- is the most complicated from the standpoint of energy balance, because it has both gravitational and thermal excitations. It, too, requires numerical modeling. Professor Platzman is a renowned meteorologist with considerable experience with various problems of tides, both atmospheric and oceanic; he is an ideal candidate to pursue the proposed work.